Conference: RNA Catalysis, Splicing Evolution, September 22-25, 1988, Albany, New York

This conference will bring together an international group experts on various aspects of RNA function. Some of these aspects are newly emerging areas of intensive research, and one of them has never before been the subject of a formally convened session. The series of conferences to which this one belongs are noted for their promotion of lively exchange of ideas, as well as the unusual opportunity they have provided for younger scientists (students and postdoctoral fellows) to participate in face-to-face discussions with acknowledged leaders in the field. The discussions at this conference will permit exchange of ideas among experts who would not normally interact, and should thus provide a great impetus for research in this exciting field.